A Conference on the Introductory Calculus-Based Physics Course

Physics (13) This project is supporting a Conference on the Introductory Calculus-based
Physics Course. The conference is an initiative of the National Task Force on
Undergraduate Physics (a cooperative effort of the American Association of Physics
Teachers, AAPT, and The American Physical Society, APS, and the American Institute of
Physics, AIP). In recent years it has become clear that there is a need to update and
revitalize physics education. At the same time, a significant base of research in physics
education has emerged with a particular emphasis on introductory physics. Therefore the
time is ripe to provide departments that are interested in using the results of research
to improve their courses a forum where they can get the information they need, including
examples of successful implementations. Significant interest exists in the community for
such a conference, and the attendance is estimated at approximately 200. The result will be
a large number of physics departments that will begin to revise their introductory
sequence in line with the best thinking on teaching and learning.